U.S.-Korea Cooperative Research on Spin-Isospin Excitation in Nuclei by Tagged Photons

This proposal requests funds to permit Dr. Kongki Min, Department of Physics, Rensselaer Polytechnic Institute, to pursue with Dr. Jong Chan Kim, Department of Physics, Seoul National University, for 24 months, a program of cooperative research in medium energy nuclear physics. The scientists and members of their research groups will collaborate in a study of + spin-isospin excitations in (gamma,pi ) reactions, using monoenergetic photons. The investigation is directed at obtaining nuclear structure information especially related to the spin and isospin quantum numbers in the nuclear excitation modes. Previous studies have made use of a photon source with a continuous energy distribution, which has introduced rather large uncertainties in the determination of cross sections for the reactions studied. By using high energy monochromatic photons (gamma rays), the determination of cross sections becomes more direct and less dependent on theoretical models. At present, there is no operating monochromatic photon facility in the United States with the high energy needed for photopion experiments. The collaborators, therefore, will perform their experiments at the Saskatchewan Accelerator Laboratory at the University of Saskatchewan, Canada. The proposed research should provide unique information on the basic excitation modes of atomic nuclei and should contribute to the understanding of nuclear structure. The U.S. and Korean collaborators are highly respected scientists who have records of successful research in electro- and photonuclear physics research. The present project will allow them to combine their talents and interests for mutual benefit. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF).